The National Center for Supercomputing Applications

This award supports the renewal of the cooperative agreement between the National Science Foundation and the National Center for Supercomputing Applications (NCSA). Dr. Larry Smarr is the Director of the Center. NCSA is one of the national supercomputer centers funded by the Division of Advanced Scientific Computing and provides supercomputer access to scientific researchers as well as training/educational and other related scientific services. The effective date of the agreement is October 1, 1990. This is an administrative action.